SBIR Phase I: CHARACTERIZATION OF FUSION GAIN FACTOR Q FOR ORBITRON MICRO FUSION REACTOR

The broader impact/commercial potential of this Phase I Small Business Innovation Research (SBIR) project is to develop a small plasma confinement device called an orbitron, which could have applications to allow low cost, highly mobile fusion sources. Markets with the largest opportunity to benefit from small, carbon-free, micro-fusion reactors are the “hard-to-decarbonize” industries like long haul trucking, maritime shipping, aviation, distributed energy, and also space power and propulsion. The development of a small clean energy fusion reactor would be a transformative technology for society. The proposed micro-fusion device may enable continuous clean energy production from readily available elements, without the use of long-term radioactive elements. This microfusion device is also expected to be orders of magnitude cheaper than larger scale fusion reactors, and will allow for iterative design and testing for optimization.

This SBIR Phase I project will result in the ability to achieve predictions of the fusion gain factor (Q) for orbitron-based micro-fusion reactors. Orbitron science combines aspects of electrostatic ion traps, like an Orbitrap, with high voltage microwave-type electron confinement in “crossed-fields” like a Magnetron. The resulting plasma regime is novel and exhibits very high ion and electron energies, moderate densities, and long particle confinement times. Optimized fusion gain factor modelling will be achieved via systematic anchoring and validation of Particle-in-Cell (PIC) code via experimental measurements. Discrete experiments with small orbitron fusion reactors will be used to assess the various plasma loss mechanisms. These mechanisms include ionization between fuel ions and neutral background atoms, particle scattering collisions to the device walls and Bremsstrahlung X-ray radiation losses. Once these mechanisms are correlated with the PIC code, detailed assessments of the simulated fusion plasma will be made to determine the potential Q of a future small-scale fusion reactor for energy production. This gain in understanding will enable development of solutions to mitigate loss mechanisms in future prototypes to maximize Q for small net energy fusion devices.